Presidential Young Investigator Award: Research in Experimental Intermediate-Energy Nuclear Physics

A large detector array to be utilized in exclusive quasifree scattering experiments will be constructed. The goal of these measurements is to obtain information about the degree to which the nucleon-nucleon interaction is modified when one of the nucleons is embedded inside the nucleus.